Privacy and Information Acquisition in Competitive Markets

Privacy and Information Acquisition in Competitive Markets

Recent years have witnessed dramatic advances in virtually all aspects of
information technology including: storage, processing, and
transmission. Between 1988 and 2000, the cost of a gigabyte of hard disk
storage fell from about $11,500 to around a dollar. Between 1989 and 2000,
the number of transistors on a standard PC mother board increased by a
factor of 42. Between 1990 and 1998, the number of nodes on the Internet
increased from 313,000 to 29,670,000. Such innovations in information
technology have revolutionized many industries. They have reshaped modern
economies and profoundly impacted society. They have given rise to new
markets for new goods and services while at the same time spawning new
concerns regarding questions of public policy. The question at the heart
of this project concerns the impact of the revolution in information
technology on personal privacy.

The dramatic advances in information technology occurring over the past 15
years have generated both social benefits and costs. The benefits derive
from a more efficient allocation of goods and services and job
assignments. For example, insurance policies, debt contracts, and
apartment leases can be tailored to better fit the characteristics of
prospective customers. Likewise, employment and college-enrollment offers
can be better matched with the skills and aptitudes of applicants. There
are, however, two costs associated with increased information
acquisition. First, there is obviously a direct resource cost involving
the collection, storage, and processing of data. Second, there is a cost
in terms of personal privacy. Specifically, while consumers and/or
prospective employees are typically willing to divulge some personal
information in order to secure more favorable contract terms, firms often
do not possess incentives for efficient information collection when
screening their applicants. In particular, when firms' data-collection
efforts are unobservable (and therefore not contractible), a divergence
between the marginal social benefit and marginal private benefit of
information acquisition arises. In environments where information
acquisition corresponds to searching for `bad news' about applicants, the
marginal private benefit is typically larger, inducing firms to reject too
many applicants. By contrast, in environments where information
acquisition corresponds to searching for `good news,' the marginal private
benefit to screening is lower than the marginal social benefit, and too few
applicants are approved. Hence, firms have incentives to search too hard
for bad news about their applicants and not hard enough for good news.

This project will investigate the economic consequences deriving from this
fundamental divergence between the private and social benefits of
information acquisition in a variety of market settings. Issues such as
the assignment of privacy rights, price and access discrimination, and the
efficiency of trading relationships will be analyzed.